Proposal for Hybrid Systems Workshop; March 25-28, 2004, Philadelphia, PA

The HSCC 2004 {Seventh International Workshop on Hybrid Systems: Computation and Control, and a satellite workshop devoted to foundations and applications of Robustness, Abstractions and Computations, were held March 25-28, 2004 in Philadelphia on the campus of the University of Pennsylvania. The annual workshop on hybrid systems attracts researchers from academia and industry interested in modeling, analysis, and implementation of dynamic and reactive systems involving both discrete and continuous behaviors. The emphasis is on the interdisciplinary nature of the topic, bringing together researchers in computer science and control engineering. HSCC 2004 includes tracks on the use of hybrid systems in computational biology and a special session devoted to foundations of Robustness, Abstractions and Computation.

NSF support enables participation by U.S. graduate and undergraduate students in hybrid systems.